I/UCRC CGI: Center for Energy Harvesting Materials and Systems (CEHMS)

I/UCRC for Energy Harvesting Materials and Systems

1035042 Virginia Polytechnic Institute and State University; Daniel Inman
1035024 University of Texas, Dallas; Bruce Gnade

The Center for Energy Harvesting Materials and Systems ((CEHMS) will focus on recovery (harvesting) of unused energy from various sources such as radio and television towers, satellites and various portable electronics. Virginia Polytechnic Institute (VT) and the University of Texas, Dallas (UTD) are collaborating to establish the proposed center, with VT as the lead institution.

The proposal seeks a grant for a new multi-university Center for Energy Harvesting Materials and Systems to focus on energy harvesting approaches. The focus of research within this center will be to investigate a wide range of potential energy harvesting opportunities in power systems, human activity, industrial machines, vehicles, vibrating structures and other such sources. While the energy harvested in any one of the opportunities is small, the accumulation effect can be very significant. The proposed researchers have identified some unique and creative opportunities to assess the value and potential for harvesting energy that would otherwise be untapped. The research is important to the US and much of the world in efforts to capture new sources of energy. The reduction in dependence on foreign oil is always of significant value. The PIs have excellent credentials for conducting the research effort, and the involvement of a number of qualified researchers from the two collaborative universities is impressive. The proposal is very well written and the project descriptions are clear and well documented. The research tasks are appropriate and appear to be very well conceived.

The proposed Center has the potential to improve sustainability and profitability of US manufacturing firms by developing new technologies that will reduce energy consumption and harvest energy that is normally wasted. The proposal uses a diverse group of researchers to develop new technologies that can be used in developing new industries, new jobs, new products and new services in the future. The research team is made up of various ethnic and gender groups that have a variety of educational and professional experiences including minority and disadvantage groups. The technologies that are developed by this proposal have the potential to have a large economical impact by producing jobs in new industries and reducing the need for existing fossil fuels. The plan for involving underrepresented students and faculty in the center is very well presented and appropriate. The research program will enhance the already impressive infrastructure at the two universities. Because of the wide range of topics, the dissemination of the results will be primarily through publications and industry meeting. The students involved with the program will be well prepared to enter the workforce and provide additional technology transfer.